REU: Micro-Robot Soccer Playing - A R&D Project for Undergraduate Students

9610082 Wang, Jing University of California, Riverside REU: Micro-Robot Soccer Playing - A R&D Project for Undergraduate Students This Research Experiences for Undergraduates (REU) Site project supports 8 students per year in programs carried out during the summers, for three years. The projects involve research and development aspects of micro-mobile robots, robots that can cooperate to "play" soccer against another robot team--an innovative research project promoted internationally by the IEEE Robotics and Automation Society. A robot soccer game is played on a court of 140 cm X 90 cm by two teams of autonomous mobile robots, each of which must fit in a 7.5 cm cube. A team consists of 3 to 5 robots. Participants will work on micro-robot structures, computer vision systems, onboard-robot processing units and peripherals, local motion and sensing, inter-robot communication, computer simulation, and game strategies. The program is designed to train students to become research-minded and to think independently while gaining technical and ethical experiences. Students will be exposed to cutting edge research in various technical areas including robotics, artificial intelligence, distributed computing, real-time systems, and computer organization.